Problems in Game Theory and Decision Theory and Their Economic Applications

This project contributes to game theory, decision theory, and utilitarian ethics. The investigator is a very distinguished scholar. His early work helped define these fields and he remains an active contributor in all of these areas. His recent research is partly responsible for a breakthrough in game theory. He is capable of pursuing this ambitious research agenda. The project consists of three parts. The first part builds on a major breakthrough by the investigator in game theory, i. e., the development of a principled systematic theory that defines a unique outcome for any game. This is an important advance because almost any nontrivial noncooperative game will have very many and sometimes even infinitely many significantly dissimilar outcomes. This means that without this new theory specific testable predictions can be derived from game-theoretic models only by imposing various ad hoc restrictions on acceptable solutions. Further work is needed to define the assumptions that underpin this new theory, contrast the theory with other methods used to obtain unique solutions such as stability theory, and make this theory easier for economists to use. The second part demonstrates that utilitarian theories of ethics are not inconsistent with nonutilitarian concepts of moral obigation and moral rights. The investigator justifies a rule that gives precedence to certain individual moral rights over direct social-utility maximization on the grounds that such a rule has enormous social utility in its own right. If this line of research is successful it could provide a way of rationally justifying moral rights and obligations that modern philosophies now can only define as important. The third part continues the development of a general theory of inductive logic based on Bayesian decision theory. This project explores the relationship between rational presumption of truth and probabilities. It extends earlier work on the relationship between the simplicity of empirical hypotheses and their prior probability.